Statistical Properties of Mainshocks and Aftershocks in Regional Earthquake Catalogs

This research is to apply several recently developed methods utilizing single-link cluster analysis to evaluate temporal and spatial changes in mainshock and aftershock activity in eight different regional catalogs of earthquake hypocenters. The catalogs are from networks in the Central Aleutians (Adak), Eastern Alaska, California, Nicaragua, Oregon, the southern Soviet Union, Peru, and Vanuatu. The goal is to see how statistical properties of earthquake clusters are influenced by the obvious stress and rheologic differences between convergent margins, strike-slip margins, and volcanic regions. This research is a component of the National Earthquake Hazard Reduction Program.